Development and Implementation of a Self Evaluation and Assessment System for NSF's Tribal Colleges and Universities Program [TCUP]

Systemic Research, Inc. will collaborate with the awardee institutions of NSF's Tribal Colleges and Universities Program (TCUP) in the development and implementation of a Self Assessment and Evaluation System. Within the context of TCUP goals and relevant Government Performance and Results Act (GPRA) requirements, the TCUP Self Evaluation System will assist TCUP awardee institutions with progress indicator data collection for formative self-assessment and evaluation. Electronic evaluation instruments will be designed and developed in close coordination with TCUP awardee institutions to collect relevant quantitative and qualitative indicator data.

This activity will enhance TCUP awardee institutions' capacity to monitor and assess institutional efforts to broaden participation in science, technology, engineering and mathematics disciplines. Proposed collaborative efforts will enhance institutional database management, evaluation and research capacity at TCUP awardee institutions.